Acquisition of a Distributed Computing Cluster for Computational Biology Research

06/19/98 This proposal will fund the purchase of a computing cluster to support computational biology research at Montana State University. The computing equipment will be used for multidisciplinary research in the general areas of Neurosciences, Population Ecology, Biochemistry, and Structural Biology. The major users will be 12 faculty from four different departments at Montana State University: Biology, Chemistry and Biochemistry, Mathematics, and Computer Science. A total of 11 postdocs and 27 graduate students in these faculty labs will use the equipment for their research projects. This computer cluster will also directly support research projects involving numerous undergraduate students, including those enrolled in several special programs for minority students. These students will have access to the equipment though their involvement in research projects sponsored by the faculty users.